Biotechnology Facility for Analytical Ultracentrifugation

This proposal requests funds to establish and Analytical Ultracentrifuge Facility at the University of Connecticut in its new Biotechnology Center. The facility will employ centrifuges outfitted with the most advanced optical, electronic, and mechanical improvements. In addition, a number of computer- assisted data analysis methods will be installed for use by outside users. Documentation of hardware and software will be made available to other laboratories. The facility will meet many of the needs of the academic and industrial research communities and set standards for new commercial instrumentation in this field. In addition, the training, which will be promoted by conferences and workshops, is expected to provide a broader personnel base for transferring instrumentation developments from this facility to other academic and industrial laboratories throughout the country. establishment of this facility should have a major impact in making readily available the most sophisticated analytical ultracentrifuge as well as some of the foremost experts with whom to discuss research problems. Support is strongly recommended.